RAPID: Response of European Intertidal Communitites to the Severe Winter of 2009-2010

Intellectual Merit: The winter of 1962-63 in Europe was the coldest since 1740 and had catastrophic effects on intertidal populations, including mass mortality of many species and contraction of geographic ranges by hundreds of kilometers. Some species and their associated communities took almost 50 years to return to their previous range limits. The severe winter of 2009-10 in Europe appears to have been virtually identical to that of 1962-63, based on sea surface temperature measurements from MODIS satellites and International Comprehensive Ocean-Atmosphere Data Set (ICOADS) data. The aftermath of this winter offers an outstanding opportunity to test the mechanisms controlling the biogeographic limits of major ecosystem engineering species in rocky and sedimentary intertidal habitats on a continental scale, and to understand the role of rare climatic events in controlling continental patterns of community composition. Because the PIs have data at high spatial resolution on abundance from over 300 locations at 20-50 km spacing over the affected coasts from the past 5 years, they are in an excellent position to detect the geographic scale of the effects of the winter of 2009-10, but they need to move quickly to distinguish among alternative mechanisms controlling the biogeographic distribution. This project will conduct field campaigns in the summer of 2010 to determine the effects of the one of the coldest winters in 50 years on the geographic distribution of ecologically dominant rocky and sedimentary shore species.

The PIs will test the following geographic hypotheses:

1) The northern geographic range limit of the southern species is set by adult intolerance of winter cold, mediated by a) reproductive failure or b) mortality.
2) The northern geographic range limit of the southern species is set by adult intolerance of summer cold, mediated by reproductive failure.
3) The southern geographic limit of the northern species is set by adult intolerance of warm winters, mediated by reproductive failure.
4) The southern geographic limit of the northern species is set by adult or juvenile intolerance of warm summer conditions.

The PIs will send two teams to Europe to collect data in the summer of 2010 to test these hypotheses. The PIs, two graduate students and an undergraduate will resurvey the more than 300 sites measured by their group in 2006-2009 from central Portugal to Scotland.

The results are likely to impact dramatically the discourse on impacts of climate change. Results to date, including those of the PIs, have centered on descriptions of gradual biogeographic range changes and exploration of the mechanisms driving those changes. A central prediction of climate change, however, is the increasing frequency of potentially catastrophic climatic events like the winters of 1962-63 and 2009-10 which have the potential to periodically reset the range boundaries of species in a ratchet-like manner.

Broader Impacts: This project will provide two graduate students (both female) and one undergraduate (male) the opportunity to carry out biogeographic field work on the coast of Europe. They will meet with European marine scientists at marine laboratories from Portugal to the United Kingdom. Over the course of 6 weeks, they will be exposed to continental-scale patterns of biodiversity that very few investigators ever see. At the University of South Carolina, additional undergraduates (3 females) will participate in the analysis of the data. All participants will contribute to poster and oral presentations at the national Benthic Ecology meeting in 2011.